Coming Into the Country: Pioneering K-12 Internet Access in Alaska's Interior

9454193 Keating Summer, 1994 A three-day meeting will be organized on the UAF campus with leaders in collaborating school districts, UAF faculty, and UA and UAF computing support personnel, with a NorthWestNet/UACN network engineer. This program will be designed to explore technical options for interconnection, programmatic opportunities for simultaneously reforming schools and the education of educators, and the implications, for knowledge access and exchange, particularly in the sciences, of deploying computer-mediated communications through the Interior region. Fall, 1994 The network engineer will inventory, in collaboration with district and school personnel, districts' computing capacities, existing technology infrastructure, and potential level of infrastructure investment. Although all possible forms of network connection will be explored, particular attention will be paid to the possibilities of satellite-to-cable connections for opening the Internet to these rural sites. Winter, 1995 Consultations and collaborative inquiry will continue, as districts clarify the extent of their commitment - physically, financially, and programmatically - to this collaboration, and develop action-plans for technological deployment and educational improvement. District leaders expect to interact with each other and UAF colleagues from the central UAF campus, as well as those at the rural campuses through dial-up access during this planning period. Spring 1995 Circulation of ideas and plans for development will begin the physical and programmatic interconnection of these educators, across the educational continuum, in Fairbanks and Alaska's rural Interior. Progress and plans will be reported and shared externally, as well. Just as work-to-date in extending Internet access to our K-12 colleagues has been discussed and reported in national and international meetings (Smith, Keating and Li, 1989; Smith and Keating 1990; Keating and Smith, 1991; Keating and S mith, 1992; and Keating, 1992), I anticipate that the special case of rural Alaska 1) in terms of technological deployment; 2) the explicit attention to technologically linking schools and Schools of Education for systemic school improvement and simultaneously improving the education of educators, which goes well beyond the formal partnership envisioned by Goodlad and colleagues to regular, real-time communication and exchange, and; 3) the potency of this medium for improving science education through the connection of scientists and science educators with science teachers in schools - especially rural and remote school sites - will yield even more information about internetworked computing and communication in education which will be reported and shared in the appropriate communities.